Mathematical Sciences: Spatial Stochastic Models in Biology; May 26-28, 1994; Colorado Springs, Colorado

9312348 Schinazi The conference proposed here will bring together a group of outstanding biologist and mathematicians who are interested in applying Probability models to Biology. Recently there have been significant advances in understanding the interplay between some interacting particle systems (Markovian spatial stochastic models) and the class of differential equations traditionally used to model ecological systems. The stochastic models extend the traditional deterministic biological models and open new issues for probabilists and biologists alike. Indeed a fresh perspective and foothold has been gained in this well established area of mathematical modelling which promises to quite fruitful. On the one hand the broader view may be used to justify various simulations done by biologist as well as give new ideas for simulations, while on the other hand it raises several interesting probability questions about new stochastic models. Recent collaboration between researchers in interacting particle systems and mathematical biology has shown that analyses of stochastic biological models which have been done in the past can sometimes be clarified using the modern probablilisitic viewpoint. Seen from this new light, the original stochastic models introduced by mathematical biologist and ecologists acquire a unified meaning besides presenting a number of important new biological insights. This conference represents a unique opportunity to advance mathematical biology, probability, ecology, and epidemiology in a unified forum. ***